Numerical Continuation for Nonlinear Problems with Symmetry Structures

DMS 9870274

Abstract

Numerical Continuation for Nonlinear Problems with Symmetry Structures

Kurt Georg and Eugene L. Allgower

This investigation deals with the study and development of numerical
continuation methods which intrinsically exploit symmetries. The
integration of techniques for exploiting symmetry in the solution of
linear systems, which have recently been developed by the
investigators, into a numerical continuation method will provide a
practical and efficient tool for detecting symmetry pattern breaking
bifurcations while tracing a branch, and for following bifurcating
branches for secondary and multiple bifurcations. The continuation
methods which will be studied and developed will concentrate upon the
handling of large systems of equations such as those stemming from
discretizations of systems of partial differential equations and
integral equations. Several techniques for numerically handling
bifurcations will be investigated. These include the normal form
equations of center manifold theory and the Lyapunov-Schmidt
reduction. By applying symmetry reduction methods developed by the
investigators, block diagonalizations are obtained which greatly
facilitate the bifurcation analysis. Among the applications to be
treated will be: nonlinear elliptic equations such as those which
model the buckling of shells with symmetries, equations for spherical
convection which model planetary atmospheres, Ginzburg-Landau
equations modelling the dynamics of travelling waves, and nonlinear
boundary integral equations which are discretized via boundary element
methods. Integral equations of the latter kind arise in a natural way
from exterior boundary value problems. It is anticipated that the
programs which will be developed will be disseminated via anonymous
ftp in the same manner as the investigator's programs for numerical
continuation and symmetry reduction methods have been done.

Numerical continuation for large structured systems, which will be
studied in this investigation, has a broad field of important
applications. In particular, numerical continuation can be used to
computationally simulate how the variation of inherent control
parameters causes qualitative changes in a physical system. Such
parameters may represent loading, speed, temperature, viscosity,
aspect ratio, etc. The determination and analysis of critical values
of control parameters is of great significance to the scientist and
engineer, because at these values decisive phenomena occur: stability
can be lost, structures can break or go into resonance, ingnition
takes place, atmospheric flow patterns change, etc. Mathematically,
critical values of control parameters in physical models are
characterized by bifurcation points. Numerical continuation methods
can be used to detect and calculate bifurcation points. The
investigation will concentrate on phenomena taking place in regimes
which have geometric symmetry structures. The consideration of such
structures enhances the scientific understanding, but can also be
exploited for more precise and efficient calculations. The computer
visualization programs which will be developed will assist researchers
and students to simulate, study, and gain insights into the pattern
changes of physical phenomena under the variation of parameters.